Building Capacity for a STEM Learning Network to Prepare Highly Effective STEM Teachers for Teaching in High-Need Schools

This project aims to serve the national need for highly effective STEM K-12 teachers trained in culturally and linguistically responsive teaching approaches. To do so, it will help Loyola University Maryland build infrastructure for recruitment of undergraduates and professionals into its STEM education programs. The project will also lay the foundation for preparing these students to teach in high-need school districts in the Baltimore region. The project team intends to develop a learning community of pre-service and in-service teachers, as well as improve academic and professional advising and develop opportunities for early teaching exposure in diverse, high-need academic settings. The long-term goal is to develop and implement successful strategies to recruit and retain STEM majors and professionals in the teaching profession.

This Capacity Building project at Loyola University Maryland includes partnerships among faculty in its School of Education and National and Applied Sciences division, as well as representatives from Baltimore County Public Schools, a high-need local education agency. Project goals include the following: 1) develop, test, and collect baseline data about STEM-education recruitment and retention strategies; 2) provide faculty with professional development to test, disseminate, and integrate active learning innovations in STEM and STEM-education courses; and 3) Develop a STEM-Network collaborative to strengthen the relationship with Baltimore County Public schools and to explore strategies to close the student-teacher diversity gap. Findings and lessons learned from this work are intended to provide information to the larger community of small, primarily undergraduate, liberal arts institutions that train future STEM educators. In the long-term, this Capacity Building project has the potential to contribute to developnent of a diverse, experienced STEM teacher workforce, which in turn would support improvement of K-12 student academic achievement and STEM skills readiness for college success. This Capacity Building project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 STEM teachers to become STEM master teachers in high-need school districts. It also supports research on the persistence, retention, and effectiveness of K-12 STEM teachers in high-need school districts.